Photoperiodic Regulation of a Circannual Rhythm

Virtually all animals undergo marked changes in body structure, function and behavior which enable them to adapt to, and survive, the hardships of a seasonally changing natural environment. The goal of Dr. Karsch's research is to understand the means by which the changing seasons regulate seasonal reproduction, a natural process of reversible fertility and infertility. He has selected domestic female sheep as the model system. In this species, the process of seasonal reproduction is generated spontaneously by a self-sustained endogenous rhythm of neuroendocrine activity. Changes in day length provide time cues which permit appropriate phasing of this endogenous rhythm with cyclic changes in the environment. Dr. Karsch will determine whether a short day photoperiodic cue is effective when given during anestrus, and whether a long day photoperiodic cue is ineffective when given during the breeding season. The specific photoperiodic messages will be restored by infusion of melatonin into pinelectomized sheep. Melatonin is a hormone secreted by the pineal gland only at night, and it enables the animal to tell how long the night is and thus the duration of the day. The outcome of this research should lead to new insights into a fundamental problem of enormous biological significance and practical importance: the regulation of fertility. The results will also be more broadly applicable to a wide variety of physiological, metabolic and behavioral rhythms which form an integral part of the adaptive mechanisms in many animals. An understanding of these processes should have profound implications to the reproductive biology of endangered species that are seasonal breeding. Since the studies will be done in domestic sheep, the findings will have a direct bearing on production in the food and fiber industries.